An Entry-Level Unidata PC-McIDAS Network to Enhance Meteorology Education and Research

9307114 Czarnetzki This project seeks to install a network of three low-cost computers to run an OS/2-based UNIDATA PC-McIDAS system. This network will become an integral component of the existing meteorology course offerings, would provide the needed sophistication for the development of additional atmospheric science courses, and will provide data which could be used to initiate or enhance research projects. The UNIDATA network will also make substantial contributions to computer literacy initiatives in progress at the University of Northern Iowa. ***